Chaos, Interactions, and Semiclassical Approximations

0098027
Tomsovic
The project is concerned with the physics of both few-degree-of freedom and many-body mesoscopic systems. The systems include quantum dots and compound nuclei formed in nuclear collisions. These quantum systems have some associated underlying, classically chaotic dynamics. The tools provided by semiclassical and statistical theories are not fully developed for partially or fully chaotic systems. The project expects to extend the theories, to understand their limitations, and to apply these advances to any of a number of physical systems.